Recurrence for Measure Preserving Systems and Infinitary Ramsey Theory

Proposal Number: DMS- 0200700
PI: Randall McCutcheon

ABSTRACT

This project focuses on multiple recurrence in ergodic theory,
with applications to combinatorial number theory, specifically
density Ramsey theory. The analysis of the returns of positive
measure sets under measure preserving actions along combinatorially
benign trajectories, such as the ranges of polynomials or IP-systems,
has led to a variety of strong theorems not accessible by other
methods.

Theoretical dynamics originated with the investigation of the long
term average behavior of physical systems evolving over time, and
abstract ergodic theory grew out of such developments. Study of the
applicability of this theory to seemingly unrelated, non-physical
entities, such as those arising in combinatorics, strengthens our
sense of the connectedness of and the unification of the landscape
in the whole of mathematics.